Infinite Dimensional Lie Algebras, Quantum Groups, and their Applications

RESHETIKHIN The main theme of this proposal is the study of quantized universal enveloping algebras, their representations and their applications to low dimensional topology and to quantum integrable models. Among specific goals of the proposal are: q-W algebras their quantization and their role in the representation theory of quantum affine algebras, the duality aspects for q-W algebras, tau- functions as spherical functions on Poisson Lie groups and their quantization, various aspects of interrelations between quantum and classical integrable systems and representation theory. Recent decades were characterized by intense and productive interaction of mathematics and physics. Large part of this process was initiated in the study of classical and quantum integrable systems and developed from there to various questions related to conformal field theory and to a very productive developments in the string theory. On the mathematical side of this interaction are various aspects of algebra, geometry and topology. My research is focused mostly on the study of algebraic structures resulted from this interaction and inspired by it. They are remarkable not only because they are quite exceptional but also because they have important applications ranging from low dimensional topology and geometry to solid state physics.